Developing and Analyzing an Information System for Choropleth Maps

Professor Slocum will explore the ways computer-generated maps can communicate geographic information to map users in ways that printed maps cannot. He will first develop an information-oriented software system that uses separate maps to portray cartographic information, gives the user access to the data upon which maps are based, and enables the user selectively to view any of the data classes used to make each map. He will then conduct an evaluation of the software by both cartographically experienced and cartographically naive map users. Computer generation offers many mapping options that are difficult or impossible to achieve with hardcopy maps. Slocum's research will increase our understanding of how users interpret one of the most commonly used mapping techniques. His work will enable cartographers to design more effective maps and geographic information systems.